A Preliminary Investigation of Diverse Learning Styles in a Multi-agent System

This project investigates the cognitive learning styles of heterogeneous, distributed software agents to uncover how they best learn, discover how other agents learn and take advantage of the various learning capabilities. The objectives of this research project are to 1) identify the various styles of multi-agent learning, 2) develop a multi-agent learning framework, and 3) conduct experiments on multi-agent learning. This research project will advance our understanding of agent information and knowledge sharing.